A Nuclear Gene that Induces Mutations in Chloroplast DNA

These investigations are designed to characterize the mechanism by which a nuclear plastome mutator (pm) gene causes mutations in the plastid genome (plastome) of Oenothera. Genetic and molecular traits shared by pm and various bacterial mutators are consistent with the pm gene encoding a topoisomerase, helicase, or polymerase that functions within the chloroplast (cp). Another possibility is that absence of the pm-product increases levels of error-prone repair of cpDNA. Experiments to differentiate among these alternatives include chemical mutagenesis treatments of pm seeds, where a synergistic response to a number of mutagens will indicate a general defect in a component of cpDNA repair. Determination of the extent of slipped strand mispairing in the pm isolates will show the likelihood that a defective helicase or topoisomerase is involved. Other experiments are designed to locate the sites of existing pm-mutations, and to isolate new pm-mutations in the rbcL gene. Sequence data from these sites will indicate whether pm causes base substitutions, small deletions, or other alterations, as well as sizeable deletions observed in other, non-coding regions of cpDNA and occurring between short direct repeats. In addition to providing insights into the molecular events that result in the mutation of cpDNA, these investigations are pertinent to the history of the cpDNA molecule, which, in an evolutionary time frame, has experienced frequent deletions, insertions and inversions mediated by short direct repeats.***